Excellence in Research: Effect of Hydration on the Thermo-elastic Properties of Mantle Minerals and the Geophysical Implications.

The most direct way to study the Earth’s deep interior is by studying vibrations generated by earthquakes, called seismic waves. The velocity of seismic waves depends on the type of rocks they encounter. It was shown that at depths of 410 to 660 km (255 to 410 miles) - in the so-called transition zone - two dense minerals are present: wadsleyite and ringwoodite. These minerals can incorporate large amount of water in their structure and may hold as much water as that contained in the oceans. This project will investigate how water incorporation in wadsleyite and ringwoodite affects the velocity of seismic waves. The study outcomes are critical to better understand the properties of the transition zone. It has implications for understanding of thermal convection in the Earth. This project promotes multidisciplinary collaborations across Earth Sciences, Physics, Chemistry, and Mathematics. It provides support for a post-doctoral associate and training for undergraduate students.

Experimental and theoretical studies indicate that wadsleyite and ringwoodite can incorporate up to 2-3 weight percent of hydroxyl (OH-) in their structures. Up to 1.5 weight percent of water was measured in a ringwoodite crystal trapped in a diamond which originated from the transition zone. Water incorporation strongly affects mineral physical and chemical properties – such as electrical and thermal conductivity, melting and flow – as well as elastic wave propagation. Here, the researchers synthetize polycrystalline samples of wadsleyite and ringwoodite containing controlled structural water. They use the 2000-ton uniaxial split-cylinder apparatus at Stony Brook University. The quality of the hot-pressed specimens is verified using X-ray diffraction, scanning transmission electron microscopy, bulk density measurements, and bench-top acoustic velocity measurements. Specimen elastic wave velocities is then quantified by ultrasonic measurements at high pressure and temperature, in the mineral stability fields. These measurements are carried out at the 6-B-MB beamline of the Advanced Photon Source (Argonne National Laboratory). The beamline is equipped with a cubic anvil high-pressure apparatus coupled with in situ ultrasonic interferometry, X-ray diffraction and imaging. Specimen water content is measured before and after the high-pressure experiments by infrared spectroscopy, secondary ion mass spectrometry, and using the Electron Probe Micro-Analyzer techniques.